Parallel FLUENT/RNG: A Three-Dimensional Finite-Volume Turbulent Flow Simulation Tool

9361064 Flannery We propose to develop a high performance computing environment for large-scale engineering problems, making accessible the most recent advances of parallel computing as a critical component in everyday engineering design. The success of this work, both commercially and technically, will be based on three elements. Upon successful completion of this work a powerful tool for simulation of fluid flow will make accessible the most recent advances in parallel computers to large-scale engineering problems in a user-friendly high performance computing environment.